Workshop on Linking Ecological Biology and Geoscience

Workshop on Linking Ecological Biology and Geoscience

Basic environmental science increasingly depends on collaborations among biologists
and geoscientists. We propose to bring together 35 leading scientists to explore how to
promote interdisciplinary research across the interface of ecological biology and
geological science. During a two-day meeting at the annual Ecological Society of
America (ESA) meetings, we will address questions about intellectual opportunities,
needs for unified synthetic models, and how best to support and fund such research
interactions. A central goal is to engage the broader community of scientists within the
ESA, in a manner similar to what is taking place in the American Geophysical Union
(AGU). The final product of this workshop will be a "white paper" report that addresses
the prospects and challenges for disciplinary convergence between ecosystem biology
and the geosciences. We will also submit summaries of the meeting to the ESA bulletin,
EOS, the Geological Society of America (GSA), and appropriate journals such as Nature
and Science.